Novel Collective Properties of Quantum Systems

Research in theoretical condensed matter physics will be undertaken to obtain a fundamental understanding of fractionally charged quasi-particles, including how to theoretically characterize them and how to observe them experimentally. Other studies of novel collective behavior will be conducted on the finite temperature spin-liquid state of simple models of frustrated antiferromagnets, the nature of the superconducting state in the quantum hard-core dimer model, and the transition from a spinless conductor (soliton metal) to normal metal as has been observed in conducting polymers.